A Conference on the History of Health and Nutrition in the Western Hemisphere to be held in the Autumn of 1995 in Columbus, Ohio

This project is to support a conference aimed at producing a publication on the history of health and nutrition in the Western Hemisphere. The project extends previous research on health and nutrition by analyzing skeletal evidence from pre-Columbian times to the early twentieth century. The research findings of sixteen teams consisting of economics historians and physical anthropologists will be presented and discussed at the conference to be held in Columbus, Ohio in the fall of 1995. Publication of the conference findings will be of enormous value to scholars and researchers interested in health, economic, and life-style changes of the early peoples of the Western Hemisphere.